ARI-MA: Sensor Management Problems of Nuclear Detection

0736134
Roberts
This work addresses important sensor management challenges in nuclear detection system by using novel statistics and machine learning theories and tools. Challenges to be addressed include determining which types of sensors (technology choice) and the order in which sensors are utilized to scan a container, as well as the dynamic location problem in which sensors can be mobile and may have to be controlled in repositioning. There is collaboration with national lab partners.